Hydrodynamic Interaction and Coalescence of Two Fluid Drops

This research employs analytical and numerical modeling to explore the close interaction, deformation, and coalescence of liquid drops in motion. Specific issues to be addressed are: the lubrication force and mobility functions of nearly spherical drops, collision rate predictions, intervening film drainage times, and the influence of van der Waals forces. The development of a suitable model for such phenomena, and predictions from it, will lead to improved prediction capability in the areas of sedimentation, emulsions, and flocculation.